Mathematical Sciences: Complex Analysis

The principal investigators will continue their research in dynamical systems. Professor Hubbard will focus his research on dynamical systems in the complex plane as will as higher dimensional complex spaces. Professor Earle will continue research on Teichmuller spaces and properties of the Teichmuller metric. Professor Fuchs will study problems in approximation theory and geometric function theory. This award will support research in the general area of dynamical systems. A process which is very simple and easy to understand locally can become extremely complicated, nonlinear, and difficult to analyze globally. Dynamical systems is the study of this local to global relationship. Many physical systems can best be modeled using this area of mathematics including fluid flow and turbulence, complex biological systems, mechanical systems, and chemical reactions.